The Development of a Distributed Digital Library of Mathematical Monographs

The project will create a distributed repository of significant
historical monographs in mathematics. The participation of these
three institutions is significant not only because of their
pioneering work in building digital libraries, but also because of
their extraordinary collections in this topical area. Michigan will
contribute 1,000 monographic volumes focusing on non-Euclidean
geometry from its collection; Cornell has digitized 576 volumes of
mathematical monographs, and will generate OCR to enhance access to
their materials. The State and University Library Gottingen will
contribute digitized monographs, dissertations and multivolume works
of the electronic Mathematical Archive and the database "Jahrbuch
uber die Forschritte der Mathematik", funded by the Deutsche
Forschungsgemeinschaft. Its collections are regarded as unparalleled
in this area. These funding requested will be used primarily to
develop an interoperability layer with the three strong digital
library systems at these institutions. In doing so, the participants
will focus on many of the issues central to the advancement of
digital libraries, including distributed repositories and integration
of digital resources, advanced access and retrieval, high levels of
interoperability, and models for dissemination and use.